The 38th International Symposium on Electron, Ion, and Photon Beams (New Orleans, Louisiana May 31-June 3, 1994)

9406876 Smith In the fields of nanofabrication, microfabrication, electron and ion lithographies, x-ray lithography, particle beam optics, and forefront applications of nanofabrication, the International Symposium on Electron, Ion and Photon Beams is the premier conference. At this conference the latest research results from groups around the world are usually reported first. the proceedings of the Symposium are published in the Nov/Dec issue of the Journal of Vacuum Science and Technology (an American Institute of Physics archival journal) provided they pass peer review. The NSF support of the conference will be used to enable graduate student participation in this event. ***